Acquisition of a Fluorescence Spectrometer for Research in Protein Catalysis and Folding

*** 9709164 LE NOBLE This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will help the Department of Chemistry at the SUNY at Stony Brook to acquire a fluorescence spectrometer. This equipment will enhance research in a number of areas including the following: (1) binding and fluorescence quenching experiments to probe partially folded states of proteins, (2) the role of protein surface loops in the reaction catalyzed by the interfacial enzyme cholesterol oxidase, and (3) the mechanism of the enzymes enoyl-CoA hydratase and acyl-CoA dehydrogenase. The fluorescence spectrometer counts photons of light in the UV and visible regions and when a sample of material is illuminated by UV light, filtered to absorb the reflected UV light, then only visible fluorescence is detected. The spectrometer is used in fluorescence quenching experiments which occur at fast rates, and will allow relaxation processes to be used at various temperatures. ***